Mathematical Sciences: Iterative Methods for Initial Value Problems

The conventional transient analysis of many large scale models requires the solution of nonlinear equations at each time step. In many cases, these equations are solved directly using sparse techniques. The increasing size of the models analyzed suggests that iterative methods should be used. The nonlinear problems that arise in transient analysis have special properties that may aid in their efficent solution. This research program will study the use of iterative methods in the special context of transient analysis and transient analysis methods in the context of iterative methods with a view toward the development of techniques that will be applicable to parallel or vector computers. More efficient numerical techniques along with faster and more powerful computers will allow us to solve more complex and realistic problems in science and engineering. The present research program aims to improve this efficiency for the very important and large class of time dependent problems.